SBIR Phase I: Catalytic Filter for Diesel Exhaust Purification

This Small Business Innovation Research Phase I research project explores the development of a catalytically active filtration device for the continuous removal of particulate matter from diesel engine exhaust. A novel particulate filtration system that continuously oxidizes particulate matter and does not require regeneration will be prepared, characterized and demonstrated.

Particulate emissions from diesel engines are viewed as a significant health hazard. New diesel fuel and exhaust emission regulations to be phased in through 2010 require that diesel engine exhaust be extensively cleaned. Successful application of the proposed technology will lower the cost of purifying diesel engine exhaust, enabling wider application of highly fuel-efficient diesel engines, which will in turn reduce overall fuel consumption and pollutant emissions.